Monolayer Aspects of Silicide Reaction

9528503 Bennett This research project explores fundamental aspects of the interaction of metals with silicon surfaces using advanced surface characterization techniques including 'hot STM' which provides in situ, real time observations of processes on an atomic scale; synchrotron X-ray diffraction which allows observation of buried interfaces; and Low Energy Electron Microscopy(LEEM) for video rate observations of thin film and surface reactions at high temperature. Materials systems of practical importance in silicon microelectronics are emphasized, particularly Co/, Ti/ and Au/Si. The long range goal of this research project is to establish a connection between surface and bulk phenomena for silicide reactions. Prototype systems will be studied as they progress through various stages of reaction from submonolayer precursor adsorbates or buried interface structures to reacted silicide structures to high temperature phase transformations. %%% The objective of this research is to develop a fundamental understanding of crystal growth in ultrathin film systems that are relevant to advanced silicon metallization schemes needed for next generation microelectronic devices and circuits. The research will contribute basic materials science knowledge at the fundamental atomic level of technological relevance to several aspects of advanced microelectronic circuitry. Additionally, the knowledge and understanding gained from this research project is expected to contribute in a general way to improving the performance of advanced devices and circuits used in computing, information processing, and telecommunications by providing a fundamental understanding and a basis for designing and producing improved materials. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***